CSR: Medium: Easy PRAM-Based High-Performance Parallel Programming with Immediate Concurrent Execution (ICE)

Parallel programming is in crisis: its difficulty dissuades all but the most determined (and deep-pocketed)
software vendors, and speedups are often disappointing for all but regular programs. Merely augmenting
the substantial knowledge-base of parallel computing with incremental ideas in algorithms, programming
languages, compilers, hardware, power or applications, interesting as they may be, is unlikely to change
this reality.
This project advances a powerful idea for drastically improving ease-of-programming within the context of
a holistic many-core research architecture called XMT. Our contention is that without the co-design of
language and architecture, one cannot conquer the twin challenges of easy programming and efficient
parallelization of irregular programs. Therefore we are developing a new easy-to-program language
called ICE as part of ecosystem consisting of XMT, the PRAM algorithmic model, and ICE, that together
deliver on this twin goal. The XMT architecture, developed at UMD over the last decade, is capable of
exploiting fine-grained parallelism in irregular programs. ICE is based on the successful PRAM algorithm
model, which provides a rich theory for parallel programming, and has led to published parallel algorithms
for hundreds of problems.
The broader impact of this project includes (i) much easier parallel programming model leading to more
succinct and intuitive code; (ii) freeing the programmer of many complex issues in parallel programming,
leading to greater productivity and acceptance of parallel programming; (iii) the nearness of ICE and
PRAM means that programmers would instantly have a rich “library” of parallel algorithms without having
to write their own; (iv) a language especially suitable to an architecture that has demonstrated
unprecedented speedups on hard-to-parallelize irregular applications; and (v) a very active outreach
program that has already seen XMT being used at many research and educational institutions.